Structure and Evolution of an Active Thrust Front: Eastern Precordillera, Argentine Andes

Thrust fronts are located at the interface between thrust belts and foreland basins. The unique array of structures found in these zones (opposing vergencies and triangle zones) may be due to normal propagation of the thrust belt towards the foreland or they may be developed because the thrust belt could move no farther towards the craton. This project will examine subsurface and surface data from the Precordillera of western Argentina where a thrust front is well exposed, and considerable seismic data is available for reprocessing. Results will help resolve the origin of thrust front structures and in understanding the mechanics of thrust belts in general.